Monte Carlo Calculations for Nucleon Systems

This project will develop methods to calculate the properties of
nuclei and nuclear matter by solving the Schroedinger equation for
nucleons interacting via realistic two- and three-body potentials.
Quantum Monte Carlo techniques are used. The nucleon positions are
sampled using diffusion Monte Carlo while the spin and isospin degrees
of freedom are sampled by the addition of auxiliary fields. Successful
completion of this work will allow us to verify the accuracy of the
nuclear Hamiltonian by reproducing and comparing to experimental results,
and then to predict the properties of nuclei that are currently difficult
or impossible to produce and measure in the laboratory. These data are
needed to understand, for example, astrophysically important systems
and processes such as neutron rich matter and r-process nucleosynthesis.

Broader impacts of this work include development of quantum many-particle
methods that can be applied to problems in a variety of other fields
such as electronic structure and cold atomic gases. The project will
train both undergraduate and graduate students, give them exposure at
national and international conferences, and provide for dissemination
of the results.